Introductory Microeconomics: The Way We Live

Economics teaches a way of thinking, including an ability to assess alternative choices in the face of constraints, that is fundamental to informed private and social choice. Also, an effective introductory economics course should teach students how to think intelligently and independently about economic issues. Accordingly, this project develops an introductory microeconomic course that focuses specifically on the economic decisions that individuals make over the course of their lives. The course also integrates exercises on numeric and computer analysis by providing an active, hands-on learning environment; and will significantly enhance students' economic literacy, and appreciation for cultural diversity.